Acquisition of Equipment to Create the Environmental Computing Applications System

Under the Academic Research Infrastructure Program the Principal Investigators have submitted a request that consists of three parts: (1) centralized four processor computer and data server; (2) computer-based teaching and research laboratory; (3) distributed workstations to support software development. This system will be utilized for both multidisciplinary research and education in the fields of hydrology, botany, microbiology, geography, civil engineering, environmental science, computer science and zoology.***